The Cell Biology and Genetics of Rhizobial Invasion of Alfalfa Roots

The overall goal of the work outlined in this proposal is to gain a better
understanding of R. meliloti growth and gene expression throughout the
steps of infection and invasion of alfalfa, its host plant. This
investigator describes experiments that will test the dynamics and
behavior of R. meliloti during growth inside of infection threads. This
will be done by following Green Fluorescent Protein (GFP)-tagged, mixed
with non-GFP-tagged R. meliloti, as they grow together inside infection
threads. A working model of bacterial growth during invasion will be used
to guide and help interpret these experiments. Other experiments include
the isolation and characterization of genes from R. meliloti that are
induced when this bacterium is growing inside infection threads. A
fluorescence-activated-cell-sorter (FACS) will be used to rapidly and
efficiently isolate R. meliloti gene fusions which are upregulated when R.
meliloti is growing inside of infection threads. Upregulated bacterial
genes will be sequenced and then characterized by determining their spatial
and temporal patterns of expression. In addition, the induced genes will
be mutated in order to determine their functional roles during bacterial
growth inside infection threads.

Much research has gone into developing strains of Rhizobium which lead to
increased plant yield. Often these bacterial strains behave as anticipated
under controlled conditions, but fail to live up to their potential in
field trials. This often occurs because the engineered Rhizobium strains
cannot compete effectively for access to infection sites with native
Rhizobia present in the soil. To compete effectively, Rhizobial strains
must be able to recognize host plant roots, and trigger the production of
infection sites and then populate those sites. One practical aspect of the
work proposed in this application is that it may eventually lead to
advances that will enable the design of engineered Rhizobium strains which
can better compete with native bacteria for access
to host plants in agricultural settings.